Novel Constrained Least Squares Algorithms With Application to MEG

Rao This research is studying novel algorithms for computing solutions to least squares problems with constraints, especially those problems that are underdetermined. The primary application is expected to be in Magnetoencephalography (MEG), a potentially new modality for the imaging of the brain. Both algorithm development and analysis are being considered, with MEG providing the forum for the testing and evaluation of these algorithms. It is expected that this research will greatly enhance our understanding of nonlinear iterative techniques.